Program Coordination ... Repair and Rehabilitation Research

This project continues coordination of the NSF program on the Repair and Rehabilitation Research (R/R) for Seismic Resistance of Structures. Coordination of the program will: 1) Establish a forum in which the PIs and other interested individuals or groups can provide input so that a comprehensive technical document is developed for R/R design requirements and details acceptable for engineering practice. 2) Facilitate exchange of information between U.S. and foreign researchers and designers so that all parties involved keep abreast of the state-of-the-art. 3) Encourage rapid transfer of technology from research to practice.